3D Non-linear EM Fields: Modelling and Optimization

In this three-year U.S.-Yugoslav cooperative research project in electrical engineering between Zoran Andjelic, University of Sarajevo, and S.J. Salon, Rensselaer Polytechnic Institute, the investigators will develop a mathematical model and computer based programs for three dimensional nonlinear field modelling and optimization for 3D electromagnetic field distribution of electrical devises. Such a model will be used to determine the optimal performance of an electrical devise in the design stage or during operation. The University of Sarajevo research team is expert in software development while the RPI group is experienced in code verification and data testing on large electrical equipment. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.